Design, Specification, and Implementation of Reusable Software Components

Two of the most important problems facing software engineers are how to improve the quality of their software products,and how to improve the productivity of people who build them. A mainstay of engineering design - reusability - attacks both problems and promises potentially huge economic benefits. This study concentrates on various technical aspects of data-oriented reusable software parts. The research objectives are to determine how formal specifications for reusable software can be written so they are at once understandable by humans and suitable for use in certification of correctness (through verification and testing); to identify general ways to build efficient implementations of such parts; and to explore the ramifications of reusability for the methodologies, languages, and systems used to design, build, and instantiate software components.